Free-Surface Suspension Flow: Flow-Induced Migration and Surface Morphology

Phenomena occurring at the interface between a flowing liquid-solid particle mixture of high solid volume fraction (0.3 to 0.55) and an adjacent immiscible fluid will be experimentally and computationally investigated. The effects of particle migration towards the interface and the shape of the interfacial surface will be studied. The experiments will be performed with noncolloidal suspensions of spheres of same density and same optic index as the carrier fluid. Imaging and laser-Doppler velocimetry (LDV) will provide information on the flow microstructure, mean velocity and interface between the two-phase and immiscible fluid. Gravity-driven suspension flow and the free surface between concentric rotating cylinders are considered for illustrations. The proposed research project has relevance to suspension films, coatings, extrusion, mixing and reaction processes.